K-theory and Noncommutative Geometry

From August 31 to September 6, 2006 there will be a one-week Summer
School and Research Conference on ``K-theory and Noncommutative
Geometry'' in Valladolid, Spain. The field of algebraic K-theory is
rapidly changing, thanks to the recent developments relating it to
motivic cohomology, etale cohomology, C*-algebras, derived categories
and cyclic homology. The field of noncommutative geometry is also
rapidly changing with cyclic homology, C^*-algebras and derived
category techniques playing a leading role. The two subjects have
considerable overlap, as this list shows. Bringing together
international experts in these related fields should result in the
discovery of new connections between these branches of mathematics.

This conference is part of an on-going attempt to link up several different
areas of mathematics undergoing rapid development: algebra, especially its
connections to algebraic geometry via K-theory; functional analysis,
especially operators on objects of geometric interest; and geometry,
especially those non-commuting aspects measured by cyclic homology.
The research conference portion will expose them to the forefront
developments in the subject, and the opportunity for researchers to
interact will advance discovery and enhance partnerships.